A Planning Grant Proposal to Join Connection One at Arizona State University - An NSF I/UCRC

The multi-university Industry/University Cooperative Research Center, Connection One, will be a joint effort between Arizona State University, the North Carolina A&T State University, and perhaps additional institutions in the future. The center will support a wide array of research activities related to circuits and system for telecommunications and information technology. The proposed center has a potential to have a significant impact on the broader telecommunications industry. This industry has become an essential element of national economy.